Targeted Assistance and Instrumentation for Internet2 Applications

The researchers are working to develop general tools to diagnose end-to-end
performance problems of advanced network applications on
high-speed research networks. This tool development will be grounded
in addressing the needs of two representative applications,
one with bulk throughput requirements and one with interactive
requirements. The researchers capitalize on the existing Surveyor infrastructure and
will work with other NSF-funded projects (both applications and
measurement), coordinating closely with the Internet2 End-to-End
Performance Initiative to ensure the results continue to be
used past the expiration of this grant for problems facing
higher-education.